International Travel Support: Mini Symposia 20th IEEE/EMBS Annual International Conference, Oct 29-Nov 1, 1998, Hong Kong

9873557 Szeto The 20th IEEE/EMBS (Institute of Electrical and Electronics Engineers/Engineering in Medicine and Biology Society) Annual International Conference, to be held in Hong Kong, October 29-November 1, 1998, includes the two mini-symposia of Biosensors and Biomechanical Micro-Electromechanical Systems in its program. The mini-symposia will introduce prospective investigators to the state-of-the-science in these increasingly important areas of biomedical engineering research. Support is being provided to cover partial travel costs for 15 speaker-participants in the mini-symposia. Individuals who receive support are to be selected based on the following criteria: participation in the mini-symposia; young investigators; diversity (gender; minority; disabled); organizers. Participants in the mini-symposia will learn about current research that will contribute to the development of technologies that will lead to new applications in medicine. Each recipient of support is to submit a report to the Division of Bioengineering and Environmental Systems describing the research discussed at the mini-symposia having the greatest potential for dramatically influencing the development of new medical technologies. ***